The Geometry, Topology and Combinatorics of Hamiltonian Lie Group Actions

Abstract

Award: DMS-0604807
Principal Investigator: Tara S. Holm

The principal investigator's principal focus in this proposal is group
actions and reduction in symplectic geometry. A fundamental problem
in symplectic geometry is to relate the geometry and topology of a
Hamiltonian system to the combinatorics of the moment polytope, and
vice versa. The principal players on the geometric side include the
symplectic manifold itself and its symplectic reductions.
Combinatorially, the vertices, edges, k-dimensional faces, and even
the chambers of the moment polytope play a significant role.
Generically, a symplectic reduction has orbifold singularities. The
principal investigator outlines a program towards understanding the
geometry and topology of such orbifolds. These results will provide
insight into the structure of the Chen-Ruan orbifold cohomology ring,
yielding information about orbifold Gromov-Witten invariants. This
work has also naturally led to foundational questions regarding group
actions on orbifolds. Finally, the PI will distill the geometry and
topology of the Hamiltonian system into combinatorial data associated
to the moment polytope. This will shed new light on recent
combinatorial results concerning intervals in the Bruhat order on any
Coxeter group.

Symplectic geometry is the mathematical framework for describing
phenomena in mathematical physics, from classical mechanics to string
theory. The moment map is an important tool that translates the
symmetries of a physical system into discrete data. An expert in
symplectic geometry, the PI will achieve a deeper understanding of the
relationship between the geometry of a symplectic manifold and the
combinatorics of the moment map data. Her work will shed light on
stringy invariants in this context. The proposed activities will
advance our knowledge in the fields of symplectic geometry and
combinatorics, with applications to algebraic geometry, algebraic
topology and mathematical physics. The PI's broader objectives
include increasing the participation and visibility of women in
research mathematics, and enhancing the undergraduate experience in
mathematics.